Twenty-Fourth Midwest Probability Colloquium

The 24th Midwest Probability Colloquium will be held at Northwestern University, on October 18-19, 2002. This is a regional meeting with a limited number of talks and plenty of opportunity for interaction among the researchers. It has a strong tradition of encouraging graduate students and other young investigators to attend and interact with specialists.